Constrained Concatenated Codes for Noisy Channels

The primary goal of this research is to develop efficient codes for noisy modulation channels such as those encountered in magnetic and optical recording devices. In these channels, it is often required to map the data to a sequence with special modulation properties; since most devices are noisy, the recorded sequence should have some error control capability as well. Coding techniques are used to transform arbitrary data to sequences that satisfy the modulation and error control requirements. Coding technology is one of the critical factors that has contributed to the astounding capacity of today's magnetic recording devices. The most commonly used coding scheme is based on concatenating an outer code for error control with an inner code for modulation. Although each of the two component codes may be optimal with respect to its function, the overall concatenated scheme may not be optimal. It is recognized now in industry that the coding gain achieved using this approach is close to reaching a saturation point. This research aims at optimizing the overall concatenated coding scheme rather than optimizing the component codes. It is expected that this approach will significantly improve the overall coding gain. To accomplish this task, the two component codes should not be independently designed and implemented. Instead, any error control capability in the inner code should be optimally exploited by the outer code for better performance. Funding for this project will be used to support graduate students in an area with many applications in data storage and communications, which are interdisciplinary in nature. There is a need for more researchers in the coding aspects of these applications.